Mathematical Sciences: Extending Hilbert Space Operators

Agler will continue his development of a very general extension theory for operators on Hilbert spaces that would apply to many classes of operators including subnormal operators, n-symmetric operators, and m-isometries. This will require first identifying the class of extensions that would go with a given operator, finding a good model theory for the extension, and finally applying the construction to prove new theorems. Progress on these problems will be of interest to many parts of analysis. Operator theory is that part of mathematics that studies the infinite dimensional generalizations of matrices. In particular, when restricted to finite dimensional subspaces, an operator has the usual linear properties, and thus can be represented by a matrix. The central problem in operator theory is to classify operators satisfying additional conditions given in terms of associated operators (e.g. the adjoint) or in terms of the underlying space. Operator theory underlies much of mathematics, and many of the applications of mathematics to other sciences.